Harmonic Analysis applied to Geometry of Fractal Sets

This award provides funding to help defray the expenses of participants in the conference "Harmonic Analysis Applied to Geometry of Fractal Sets" that will be held February 3-5, 2017, on the campus of Ohio State University. For additional information see the website https://u.osu.edu/hafs2017/

This conference is devoted to the study of problems that lie at the interface of harmonic analysis and the geometry of fractal sets (e.g., the Falconer distance conjecture; the existence of geometric configurations, such as triangles, within fractal sets; the relationship between the Fourier transform and Hausdorff dimension). There will be nine featured speakers: Seymon Dyatlov, Alex iosevich, Erin Pearse, Lilian Pierce, Malabika Pramanik, Sze-Man Ngai, Karoly Simon, Pablo Shmerkin, and Mariusz Urbanski. The program allows ample oppportunity for junior mathematicians to present their work.